Mathematical Sciences: Real Algebraic Varieties

Kucharz DMS 95-03138 This award supports the research of Professors W. Kucharz to work in real algebraic geometry. In particular he will study real algebraic morphisms and vector bundles on real algebraic varieties. There will be particular emphasis on methods to explicitly calculate invariants using techniques from intersection theory and K-theory. This research is in the field of algebraic geometry, one of the oldest parts of modern mathematics, but one which blossomed to the point where it has, in the past 10 years, solved problems that have stood for centuries. Originally, it treated figures defined in the plane by the simplest of equations, namely polynomials. Today, the field uses methods not only from algebpa, but also from analysis and topology, and conversely it is extensively used in those fields. Moreover it has proved itself useful in fields as diverse as physics, theoretical computer science, cryptography, coding theory and robotics.